Research Initiation: Transient Heat Transfer and Thermal Stresses in Rapid Annealing of Semiconductors with Incoherent Light

This research considers the rapid thermal annealing of ion- implanted silicon wafers with incoherent light. Thermal modeling of the transient heat transfer and the thermoelastic stresses of the thermally activated annealing processes will be performed. The analytical modeling considers the two-dimensional contributions, the moving boundary at the amorphous-crystalline interface due to the solid phase epitaxy, and the variations of the optical and thermal physical properties. A finite-difference numerical program will be developed to solve the mathematical model. The computer-aided analysis will broaden the applications to more specific and complex systems. An experimental investigation will also address the annealing process. The data will be useful for the validation and improvement of analytical and numerical models. Rapid thermal annealing is a new and promising technology related to IC wafer fabrication the VLSI applications in the semiconductor industry. The proposed research will provide a systematic thermal analysis for ion-implanted semiconductors during rapid thermal annealing processes by incoherent light. The results may improve the understanding of the heat transfer mechanism and the thermal stresses induced during the thermally activated processes. The success of this research can lead to high quality semiconductors produced in an energy efficient method with high reproducibility.